Collaborative Research: Fence Methods for Complex Model Selection Problems

Many model search strategies involve trading off model fit with model
complexity in a penalized goodness of fit measure. Asymptotic properties
for these types of procedures in some conventional situations, such as
regression and ARMA time series have been studied. Yet, such strategies
do not always translate into good finite sample performance. Furthermore,
such standard model selection procedures encounter difficulties for
nonconventional model selection problems as well. This project aims at
developments of a new model selection strategy, called fence methods, in
following four major areas of methodology research and applications: (i)
development of adaptive fence methods for high dimensional and complex
model selection problems using the idea of restricted maximum likelihood;
(ii) development of data adaptive fence methods for nonparametric model
selection problems such as penalized smoothing spline estimation; (iii)
development of fence methods for quantitative trait loci (QTL) mapping;
and (iv) development of user-friendly standalone software for implementing
the fence methods.

The fence idea is generally based on building a statistical fence, or
barrier, to carefully eliminate incorrect models. This is done by
determining which models are within variation of a goodness-of-fit
measure of an anchor model. Once the fence is constructed, the optimal
model is selected from amongst those within the fence according to
a criterion which can be made flexible. For example, the criterion can
incorporate scientific or economic concerns. The adaptive fence method
may be viewed as comparing signals with noises to come out with an optimal
decision supported by the data. Given such a wide spectrum of models that
can be handled, the range of applications seems enormous. Of particular
interests are applications in human genetics, medical research and surveys.
To facilitate such translational research, the investigators plan to freely
disseminate available computer software to implement the fence methods.